Group Travel to Attend the 1985 IEEE International Symposiumon Circuits and Systems; Kyoto, Japan; June 5-7, 1985

Support is provided for attendance at the annual meeting of the IEEE Circuits and Systems Society, which brings together experts, from all countries, in the appropriate technical areas. This year's meeting is to be held in the Far East, with contacts in Japan and China. Meetings will be held between American researchers and their counterparts in China and Japan.